The Isomorphic Structure of Banach and Operator Spaces

ABSTRACT:
This proposal deals with problems concerning the isomorphic structure
of classical Banach spaces and their quantized analogues, operator spaces.
The problems to be studied lie in the following four areas:
I. The complementation problem for ideals in C* algebras.
II. Certain extension properties for separable operator spaces.
III. The structure of complemented subspaces of nuclear C*-algebras.
IV. The structure of non-commutative L^p-spaces.
Specific problems include the following:
Area I: Let J be an ideal (closed, 2-sided) in a C*-algebra A with A/J
separable. Is J Banach complemented in A? An important special case is
where J = K, the ideal of compact operators on separable infinite-dimensional
Hilbert space; this is related to the uniform approximation property in
classical Banach space theory.
Area II: Does every separable operator space X with the CSCP completely
embed in K? X is said to have the CSCP if it is locally reflexive and
completely complemented in every separable locally reflexive superspace.
Area III: Is every complemented subspace of a separable nuclear C*-algebra
completely isomorphic to a nuclear operator space? Is the converse true?
Area IV: Let N be a von Neumann algebra and X be a subspace (infinite-
dimensional, linear, and closed) of the predual of N. Does l^p embed in
X for some 1 < or = p < or = 2? If M is another von Neumann algebra, and the
preduals of M and N are Banach isomorphic, do M and N have the same type?

The study of operator spaces involves mathematics underlying the
foundation of quantum mechanics. Important "quantized" Banach spaces include
C*-algebras such as the Fermion algebra and the algebra of compact operators
on Hilbert space, and the preduals of von Neumann algebras, i.e.,
non-commutative L^1-spaces. The problems concerning the structure of these
spaces will be approached from the perspective of classical Banach space
theory. This approach has already had considerable success, yielding basic
properties of the space of compact operators, and the Banach distinction
between the preduals of finite and infinite von Neumann algebras.